SCI: WORKSHOP: Building Bridges Between Distributed Data Management Communities; Sardinia, Italy

This proposal describes a symposium structured to engage multiple European data management efforts. The multi-day symposium includes a workshop focused on common ground between data grid efforts and similar work in digital libraries. Experts in web services and semantic web technology will be included in the workshop. The symposium will have proceedings published as an IEEE sponsored conference. The symposium will be held in Sardinia, Italy, June 20-24, 2005.

A global perspective will overlay the symposium's discussions on critical software infrastructure addressing: managing distributed data; evolving digital library technology; data preservation environments; and real world applications.

The PI is requesting funds to cover travel and per diem costs for US participants., as well as meeting room and network access costs on-site. Student participation will be sought, lodging, and sustenance for the workshop.